Innovative Laser-Based Techniques for Characterization of Subsurface Cracks in Semiconductor Wafers

The objective of this research project is to obtain fundamental understanding and quantitative interpretation of optical scattering produced by subsurface cracks in semiconductor wafers. It will investigate innovative laser-based measurement techniques for characterization of subsurface cracks in semiconductor wafers. This work will also validate/calibrate detected subsurface cracks (depth and shape) by direct comparison with destructive measurement results from surface or cross-section polishing, and generate a database for correlating laser scattering data with subsurface crack configurations.

When successfully completed, this research will lead to development of nondestructive evaluation tools for industrial use. Such tools will enhance the cost-effectiveness in the manufacturing of semiconductor wafers and integrated circuits. Research results will also benefit evaluation of subsurface damage for other materials, such as advanced ceramics. This project features with the close collaboration between Kansas State University and Argonne National Laboratory to provide excellent synergy for resources. Unique facilities at Kansas State University and Argonne National Laboratory are integrated. The PIs will also work closely with industry, to ensure the relevance of research to industry and expedite technology transfer and commercialization.